REU Site: Remote Sensing of Earth and Environmental Systems

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on using terrestrial remote sensing across a range of disciplines and provides a unique opportunity to provide place-based cutting edge STEM research and professional development opportunities. The students will develop skills in field investigations and science communication through independent research projects and collaboration within a cohort of researchers. These experiences will prepare students for the workforce and provide them with the tools to address current and future environmental and geoscience challenges.